Building a MetLab: A Unidata Equipment Grant Proposal

West Chester University of Pennsylvania is seeking support to build a Meteorlogy Laboratory in its Department of Geology and Astronomy. The MetLab will give students the capability to analyze real and archived weather data in the classroom using Unidata software. Also, the MetLab will provide an extended curriculum in meteorology for students to pursuit an education minor in meteorology. With this equipment, further advances will be made to provide analytical tools of modern meteorology to pre- and in-service K-12 science teachers.